Glucose Microbiosensor Utilizing Scanning Tunneling Microscopy

A better understanding of the behavior of enzyme modified biosensors requires a more detailed picture of the heterogenous surfaces. This information is not limited to enzyme modified electrodes, but can be extended to other organized assemblies such as lipid molecular coatings. The proposed research will characterize the surface properties of amperometric biosensors utilizing Scanning Tunneling Microscopy (STM), and will also prove the feasibility of using the STM technique to microfabricate biosensors. Fundamental STM studies will be used to establish structural/reactivity correlations. An understanding of these correlations will facilitate the productive design of biosensors, particularly in producing the effective links between the monitoring biocomponent and the structural features of the biosensor.